Computerized Image Analysis for Teaching Biological Structure

The aim of this project is to change how undergraduates learn biological structure, by changing from an emphasis on presenting the histological structure of vertebrates to an emphasis on learning to analyze and interpret structure. The Microanatomy course at the University of Richmond will emphasize three approaches to science education. (1) Collaborative Inquiry: Student teams will learn the structure and function of selected tissues by pursuing their own investigations using light microscopy, and transmission and scanning electron microscopy. (2) Quantitative Analysis: Students will analyze their specimens morphometrically. (3) Technological Competence: Light microscopes capable of Kohler illumination and phase contrast optics will be purchased to train students in analytical light microscopy. Macintosh computers, monochrome and color video cameras, and an image scanner will be purchased to capture images from light and electron microscopes. Students will then use software to quantitatively analyze and reconstruct images, and to present their data.